Direct Validation of GCM Parameterizations Against TOGA-COARE Observations

Abstract ATM-9613764 Somerville, Richard C.J. University of California, San Diego Title: Direct Validation of GCM Parameterizations Against TOGA- COARE Observations This grant supports a program of research that uses TOGA COARE data sets for the testing and validation of physical parameterizations used in numerical climate models. The focus is on the parameterization of atmospheric convection and cloud radiation interactions. The idea is to use a one dimensional diagnostic model of the atmospheric column overlying a region of the size of a single GCM (General Circulation Model) grid cell coupled to a mixed layer ocean model. Horizontal flux convergences are specified by the observed COARE data and the Single Column Model (SCM) is integrated in time. The SCM output like temperature, humidity, clouds and their properties, diabatic heating terms, surface energy balance terms etc. are compared with observations and scientific inferences are drawn. This work will not only result in comparing different parameterizations but also in improving them and in turn the climate models are also.